Oceanographic Instrumentation 2011

A request is made to fund additional and back-up instrumentation on the R/V Marcus Langseth, a 235’ Global seismic vessel with general oceanographic capabilities operated by Lamont-Doherty Earth Observatory of Columbia University as part of the University-National Oceanographic Laboratory System research fleet. The request includes nine items listed by priority:

1) Teledyne RDI 75kHz “Ocean Surveyor” ADCP $119,053
2) Applanix POS/MV V.4 Upgrade & IMU Replacement $ 92,174
3) Uninterruptable Power Sources $ 56,109
4) Two SBE-45 TSGs $ 12,623
5) Sonobuoy Electronics Package $ 51,806
6) SIPPICAN MK-21 Interface $ 8,339
7) GEOMETRICS 882 Magnetometer $ 22,550
8) EM-122 Water Column Logging License $ 15,532
9) Mammal Mitigation Gun $ 22,230
$400,416
Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.